In-Class Experimental Learning in Four Fundamental Courses

9451972 Stone Grinnell College is breaking down the barrier between lecture and laboratory in four fundamental courses that affect mathematics, computer science, and science majors: multivariable calculus, linear algebra, introductory programming, and introductory statistics. Instead of fixed-length labs in a separate laboratory room, they are weaving variable-length "mini-labs" into the fabric of lectures and discussion in a blended laboratory/classroom. This innovation makes it possible to integrate the laboratory experience more thoroughly with the theoretical content of the course, to strengthen the impact of this experience through in-class analysis and discussion immediately following the laboratory, and to position labs more flexibly, providing the experience just when the students need it. The hardware for such in-class integrated laboratory experiences supports quick access to software by many student users simultaneously, an easy-to-use graphic interface providing multiple large windows, high-quality color graphics and animations, clear display of large data sets and matrices, and access to large application packages. In the design for evaluating and disseminating the mini-lab materials that they are developing, they are building on their experiences as leaders and contributors in several projects with national impact -- projects in which they designed, evaluated, and disseminated innovative course materials.